Extension of the Present Studies On: Origin of Cube Texture in Face-Centered Cubic Metals

This research explores the formation of cube texture in face- centered cubic metals. The past research has revealed that the deformation and recrystallization textures in polycrystalline copper deformed by rolling and channel-die compression are significantly different. Computer simulation suggests that the differences could be due to lateral widening in rolling deformation; and this is the basis for the new approach in the research, controlled lateral widening in channel die compression. In this study of texture development single crystals and bicrystals are employed using controlled orientations. The bicrystals are used to characterize orientation effects on recrystallized grain nucleation at grain boundaries. The orientation of nucleated grains is critical to the texture development, and this is monitored using the new electron back scatter pattern technique to measure microtexture.